The Networked Society: A Museum Exhibit Designed to Promote Public Understanding and Use of Computer Networks

9400686 Strimpel The Computer Museum in Boston, MA, plans to develop, evaluate, and install a permanent 1800 square meter museum exhibit which is designed to promote public understanding and use of computer networks. Opening in the winter of 1994-95 The Networked Society museum exhibit will : 1) educate a diverse public audience about the many applications of computer networks; 2) teach principles of computing science and technology; 3) examine topical issues involved in computer network development and use; 4) help increase the number of American citizens who are educated in the use of computer networks; 5) help increas the number of young peopls who pursue computer networking as a lifelong interest, skill, and career. The exhibit will impact 1.7 million people in three years and address issues of technology access by educating a broad public audience with diverse computer literacy backgrounds. Diversification and increase of the the future workforce in mathematics, science, and technology is a primary NSF education objective. The proposed science museum exhibit project will assist this and other NSF objectives to address issues of technology transfer and technology access too amont the American Public.